Telomere Structure and Function in Yeast

The control of the mitotic and meiotic behavior of eukaryotic chromosomes is essential for genetic stability of cells during growth and reproduction. An understanding of the cis- and trans- acting elements that are required for proper chromosome behavior is therefore of critical importance. The focus of the investigations in our laboratory is on the structure present at the ends of the eukaryotic chromosome, called the telomere. The goal of this proposal is to investigate the function of the predominant yeast telomere binding protein, RAP1. To begin to understand the role of RAP1 at the yeast telomere two approaches are being proposed: a) the biochemical and genetic characterization of a series of novel semi-dominant alleles of RAP1 that specifically influence a number of telomere-related processes, and b) a genetic study of the interactions between RAP1 and other gene products affecting telomere length. These studies will ultimately be applied to the isolation and characterization of extragenic suppressors of rap| mutations: a key step in the identification of factors interacting with RAP1 in its role at the telomere.